RI: Infrastructure 2002: NSF CISE/EIA RI and MII PI's Workshop

EIA-0228847
William Aspray
Computing Research Association

RI: Infrastructure 2002: NSF CISE/EIA RI and MII PI Workshop

The National Science Foundation has requested assistance to coordinate the Principle Investigator's meeting for the Research Infrastructure and Minority Institutions Infrastructure programs. The PI meeting is a chance to bring researchers together to learn about the work of other research projects, and to provide a forum to discuss new ideas and future directions of the programs. CRA proposes to act as the organizer of the annual RI/MII PI Workshop. CRA is in a unique position to carry out the workshop support. Their organizational mission is to support research and advanced education in computing, and it brings them in contact with many of the departments represented in the RI and MII programs. This workshop will be held at the Cliff Lodge at Snowbird Ski and Summer Resort in Snowbird, Utah on July 12 - 14, 2002.